Anaerobic Biodegradation of Hazardous Phenols and Its Effecton Genotoxicity

Support is provided for research on the mechanisms by which phenolic substances are degraded by anaerobic microorganisms. This research is specifically directed at chlorinated phenols, nitrophenols, and methylphenols which are produced synthetically or which may be an intermediate decomposition product of more complex organic substances. Metabolism of these compounds under methanogenic and nitrate reducing conditions will be characterized as to the rate, extent, and major metabolites of degradation. In addition, their genotoxicity and any changes in genotoxicity as a result of anaerobic metabolism will ber determined. Completion of the work will elucidate the differences or similarities in the anaerobic metabolic pathways of the compound under the two reducing conditions and relate them to genotoxicity.